Acquisition of an Isotope Ratio Mass Spectrometer

ABSTRACT

OCE-0220868

Under this award, NSF will provide funding to the University of Washington to purchase a Finnigan MAT 253 Isotope Ratio Mass Spectrometer to replace the existing again instrument in the university's Stable Isotope Laboratory.